Operation of the National Superconducting Cyclotron Laboratory (NSCL) at Michigan State University as a National User Facility and Support for its Research Program

This award provides funds for operating the National Superconducting
Cyclotron Laboratory (NSCL) at Michigan State University as a national
user facility; for supporting the MSU faculty and staff to conduct
research in nuclear science, nuclear astrophysics, and accelerator and
instrumentation physics; and for serving as a center dedicated to
training the next generation of scientists.
Since its inception, the National Superconducting Cyclotron Laboratory
(NSCL) at Michigan State University has played a significant role in
nuclear and accelerator physics research, both in the U.S. and
worldwide. This role will continue at an enhanced level with the
Coupled Cyclotron Upgrade now nearing completion. In the 1996
Long-Range Plan of the NSF/DOE Nuclear Science Advisory Committee, this
upgrade project was recommended to be the highest priority for new
construction.
Large intensity gains of intermediate-energy primary heavy-ion beams are
made possible with the coupled cyclotron operation. Together with the
increased acceptance of the new fragment separator, it will be possible
to produce fast beams of rare isotopes typically more intense by factors
of 100 - 10,000 than available at the previous facility, providing
luminosities in the light-to-midrange mass region (A<50) that will be
unsurpassed worldwide.
A versatile array of new experimental devices will be brought on-line
that will significantly enhance the ability of users to conduct cutting
edge research with a broad range of rare isotope beams. Three of these
new instruments are funded by the NSF: (1) a set of eighteen segmented
germanium detectors for studies of intermediate energy coulomb
excitation and knockout reactions; (2) a 4-Tesla-meter high-acceptance
spectrometer that can be combined with large-area neutron time-of-flight
detectors for neutron and charged-particle spectroscopy at very small
angles; (3) a high-resolution silicon-strip CsI detector array that
permits measurements of isotopic abundances, excited state populations,
and isotopically resolved correlation functions with a high precision
and efficiency that cannot be matched by any existing detector array.
Other new equipment under development include a stopped-beam facility
(DOE funded) and a 9.4-Tesla precision Penning ion trap (MSU funded) for
precision mass measurements, weak interaction studies, and atomic
spectroscopy.
For the next decade, the NSCL will be the premier rare isotope research
facility in the U.S., with a research focus on three major areas of
forefront scientific interest:
1. exploration of the nuclear processes that occur in explosive stellar
environments and that are responsible for the ongoing synthesis of the
elements in the cosmos;
2. exploration of the properties of hot nuclear matter at sub- and
supra-normal densities (such as those found in neutron stars);
3. exploration of exotic nuclei with unusual ratios of protons to
neutrons and the determination of their properties.